Genetics: Decoding Life

9614298 Aprison The Museum of Science and Industry will develop "Genetics: Decoding Life," a 4325 sq. ft. permanent exhibit about the basic principles of genetics, the Human Genome Project, new tools and technology to study life, and the biomedical and biotech applications resulting from genetic information. As a result of interacting with this exhibit, visitors will understand the basic principles of genetics, they will become familiar with the role of genes in the development of life, they will learn something about how and why scientists used genetic tools, and visitors will become aware of applications of these principles and the potential social, ethical, medical and economic outcomes. In addition to the exhibit there will be a number of complementary outreach programs. An electronic web site will be created, software used in the exhibit will be modified into a format suitable for use in schools, computers loaded with genetic programs will be loaned to Chicago public school groups, churches and other community agencies, and the content of the exhibit will be used to enhance special Lamaze and prenatal classes held at the museum. Special consideration will be given to developing the relationship between the project personnel and the staff of the Chicago Systemic Initiative. They will work together to produce a school program about genetics that will be suitable for grades 5 to 8. School materials will include a teacher's guide for the exhibit, a program of classroom activities, and materials to be used before and after a trip to the museum to see the exhibit.